SBIR Phase I: Chemically Resistant Gas Separation Perfluoromembranes

9860367
This small business Innovative research Phase I project addresses the development of non-porous membranes being developed for harsh chemical gas separations. In this program we will evaluate a number of potential attractive chemically resistant non-porous membranes and associated chemically resistant supports. To-date, no non-porous chemically resistant membranes are commercially available.
In Phase I, we will develop laboratory membranes and evaluate their capability to separate hydrogen from chlorine associated with the chlor-alkali process tail gas streams. In Phase II we will evaluate other harsh chemical separations (eg HF, C2H4F2) and also perform actual testing on commercial tail gas stream.
These fluoropolymers, in combination with existing thin film processes and chemically resistant porous supports, should significantly expand the usage of membranes for a range of applications in the Chemical Process Industries (CPI). Key commercial applications include halogen separations, such as H2-C12 separations in the chlor-alkali industries, and fluorochemistry processes using HF.